Quantum and Classical Complexity of Multivariate Problems

Information-based complexity (IBC) studies optimal algorithms and
computational complexity for the continuous problems which arise in
physical science, economics, engineering, and mathematical finance.
IBC has studied such continuous problems as path integration, partial
differential equations, systems of ordinary differential equations,
nonlinear equations, integral equations, fixed points, and integration.
Usually these problems have to be solved numerically and therefore
approximately to within error e. Often these problems involve a very
large number of variables numbering in the hundreds or thousands. If a
worst case assurance of an e-approximation is demanded, then the
computational complexity depends exponentially on the number of variables;
the problem suffers the "curse of dimensionality". The investigators and
their colleagues attempt to vanquish the curse by settling for a
stochastic assurance (average, probabilistic, randomized) or by using
domain knowledge about the application. The investigators are also
studying the power of quantum computation for continuous problems. To
understand the power of quantum computation for continuous problems one
must know the computational complexity of these problems on a classical
computer in various settings. This is exactly what has been studied in
IBC. Recently the investigators introduced a new quantum setting in which
randomized queries are permitted. They have shown that for path
integration there is an exponential improvement for the qubit complexity
compared to the standard quantum setting. This is important since the
number of qubits is a critical resource for the foreseeable future. Among
the questions the investigators and their colleagues stydying are:
What are the query and qubit complexities for other continuous problems?
Are there trade-offs between query and qubit complexities?

For some forty years, computing has been driven by Moore's Law which is
the empirical observation that computing power doubles about every 18
months. Powerful computers have been crucial for our economic strength
and our national security. They have made the internet possible. For a
number of reasons the consensus among experts is that Moore's Law using
current silicon technology will end in some 10 to 15 years. These reasons
include the shrinkage of logic gates and wires to atomic size, the tre-
mendous heat generated as chips get smaller and faster, and the cost of
fabrication facilities. Since it is so important to maintain the
Moore's Law trajectory, new ways to compute are being considered. One
of the most promising ideas is to use the principles of quantum mechanics
to do quantum computing. The investigators and their colleagues are
studying the following question: If physicists and chemists succeed in
building quantum computers, which continuous problems arising in science
and engineering can be solved much faster on a quantum computer than on a
classical computer?